RUI: Development of Antipredator Behavior

Defense against predators is one of the most important survival skills for any animal. In many species, newborn individuals must be able to recognize potential enemies and to exhibit effective antipredator behavior. However, little is known about how these behaviors develop. Animals lacking parental care have no opportunity to learn effective behaviors from adults and thus are ideal for investigating how behaviors are individually acquired in nature. Dr. Herzog's experiments will investigate how an important class of behavioral tactics, antipredator responses, are learned under natural conditions. Using garter snakes, a species with virtually no parental care, this research will investigate aspects of the control, modification, and evolution of defensive behaviors. Specifically, Dr. Herzog will examine how animals learn to recognize predators, the types of experience that cause modifications of antipredator strategies, and how genes influence the ability of animals to learn new responses. The "predators" in the experiments will be lifelike models, and no animal will be harmed in the course of the research. The research will enhance knowledge of the evolution of learning ability and of the processes that enable very young animals to adapt to hostile environmental contingencies.